Instrumentation for Parallel Computation of NMR Chemical Shielding

9313685 Hinton This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at the University of Arkansas in Fayetteville in the purchase of a workstation cluster of IBM RS 6000/370 computers. This equipment will enhance research in a number of areas including the following: 1. NMR Chemical Shift Calculations a. Develop GIAO (Gauge Including Atomic Orbital) NMR chemical shift code for network parallel processing. b. Develop a parallel NMR chemical shielding program using local density functional (LDF) theory. 2. Methods for Molecular Potential Surfaces a. Efficient multiconfigurational methods for potential energy surfaces: UNO-CAS and generalized Miller-Plesset Perturbation theory. b. Dynamical correlation methods for large molecules. %%% A workstation network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-the-art graphics and visualization facilities and supports research in state-of-the-art applications of parallel processing. ***